SBIR Phase I: Deep Learning Hydroponic Forecasting System for Precision Farming

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project is the introduction of urban farming as a viable new industry for small businesses by driving down the barrier of entry to hydroponic farming. Conventional hydroponic farming necessitates complex systems in which a variety of variables must be monitored and controlled by a skilled operator in response to changes throughout the plant lifecycle and care must be taken to control these variables precisely. This need for demanding management by a technically-educated farmer has restricted the widespread adoption of urban hydroponic farming. This project will result in a fully-automated precision farming platform managing the full scope of urban farming operations. The platform uses trends in a hydroponic grown zone to forecast changes to system variables and crop growth and to automatically and intelligently adjust vital parameters to optimize resource usage and maximize output. Because the precision doser will not require extensive agricultural expertise, it will make hydroponic farming accessible to small-scale farmers, restaurateurs, and private consumers. Once it becomes possible for non-industrial operations to establish hydroponics, urban farms can place sources of fresh, organic produce right in the heart of food deserts without reliance on GMOs, herbicides, or pesticides.

This SBIR Phase I project proposes to develop a hydroponics farming control platform which intelligently predicts crop growth, forecasts vital system variables including the pH and electrical conductivity, and tunes environmental parameters in accordance with the forecasts, precisely adjusting the growing zone to maximize crop output while minimizing wasted resources. More than one-tenth of households in the United States cope without adequate nutrition or rely on processed foods, leading to the dual crisis of food insecurity and obesity throughout urban environments. Because they do not have the same extensive land and water requirements as traditional farming, hydroponic operations can take root in urban environments where access to fresh, nutritious produce is restricted. This project will target two aspects of hydroponic agriculture essential to the development of a precision farming tool: crop output and system parameters. By analyzing trends in plant growth, the platform will inform decision-making around resource usage, allowing the grower to adjust system parameters that promote the most successful crops. The final platform will directly address the concern of food deserts in urban localities, by offering a means to grow fresh produce locally, reducing the production costs of standard farming operations, and optimizing crop output in hydroponic systems.